Dissociations between Language and Cognition: Evidence from a Neurodevelopmental Disorder

ABSTRACT The general objectives of the research are to understand the interrelationship and separability of language and cognition. Williams Syndrome (WS), a rare (est. 1:50,000) metabolic disorder provides a unique and powerful vehicle for investigating separa- bility of higher cortical functions. Preliminary studies with six WS adolescents suggest a specific behavioral profile which is discontinuous from normal; subjects are mentally retarded with grammatical capacity remarkably spared. The broad program of studies outlined below will provide a new and important perspec- tive on the neural basis for language and cognition. I. Decoupling of language from cognition The precise relationship between language structure (grammar) and other aspects of cognitive functions is a hotly debated theoretical issue. The study of normal development sheds little light on this issue in that linguistic and nonlinguistic cognitive faculties are so intertwined that it is extremely difficult to separate these functions. In contrast, subjects with WS may provide a unique opportunity to address hypotheses bearing on the dissociability of linguistic and nonlinguistic cognitive domains and their underlying neural basis. II. The selective autonomy of syntax The investigators will mount a broad program of probes of syntax and semantics, using both on-line and off-line tasks which may show fractionation of higher cortical functioning. They will examine the degree to which linguistic components are vulnerable to marked cognitive deficits. The preliminary hypothesis is that language in WS subjects may be characterized by the relative preservation of the most autonomous aspects of the linguistic system (syntax), and that to the extent that other cognitive systems interact with a component of the linguistic system, e.g. in the semantic domain, increasing deviance in language organiza- tion may be found. The selective preservation of grammar in this population would provide an important testing ground for determi- nants of cerebral specialization for language. III. Differential impairment in components of spatial cognition Spatial cognition has traditionally resisted fractionation into components; however, WS may provide a strong case for dis- sociations within this domain. The investigators will explore the hypothesis that WS results in severely impaired visuospatial abilities, but preserved visuoperceptual capacities. In addition, preliminary studies suggest that spatial cognition in WS is characterized by a selective attnetion to details of a configuration at the expense of the whole.